Mathematical Sciences: Hodge Structures and L2 Cohomology

9505040 Stern The proposed research has to do with the Hodge theory of singular or noncompact varieties. The investigator proposes to realize the intersection cohomology of a projective variety as an explicit complex of differential forms equipped with a Hodge filtration. He also proposes to construct harmonic automorphic representatives of de Rham cohomology classes of locally symmetric spaces. Varieties are a central object in geometry and algebra as they arise as solutions to polynomial equations in various dimensions. Intersection cohomology is a way to understand how these varieties are situated in space by looking at their various intersection properties.